Dimension Reduction for Stochastic Processes

Traditional multivariate statistics focuses on the analysis of data that
are vectors of finite length. However, modern data collection methods are
now frequently returning observations that should be viewed as the result
of digitized recording or sampling from stochastic processes. These types of
data occur in the context of functional data analysis (where the
observation process has a one dimensional index set), image analysis and
spatial statistics, for example, and arise from every aspect of the modern
world. Our ability to process and to make use of such data directly
affects the way in which scientific inquiries are conducted and practical
problems are solved. Goals for analyzing this type of high dimensional
data include the detection of structure and dimensionality reduction and
these are the issues that will be addressed in the proposed project.
Specifically, a number of topics will be investigated concerning dimension
reduction for data from stochastic processes including i) canonical
correlations analysis for two or more processes, ii) mixed models methods
for analysis of data from multiple processes, iii) inverse regression and
iv) varying coefficient models. The unifying theme in all this work is the
use of reproducing kernel Hilbert space methods to formulate both the
problems and their proposed solutions.

With fast progressing modern technology in fields such as medicine,
environmental science, and homeland security, the data collected in those
fields today are frequently curved or spatial data, and may be even more
complicated in terms of scope and structure. Traditional statistical
methods were created to primarily deal with
low-dimensional data, and are not suitable for the high-dimensional or
``functional'' nature of the data described above. This research is aimed
at addressing a number of fundamental issues in the emerging branch of
modern statistical data analysis that deals with high-dimensional data.
The results to be obtained will not only potentially impact
high-dimensional data analytic methodology across a myriad of
disciplines, but will also provide a theoretical foundation and
directions for future statistical research.